Increasing Participation in Computer Science, Engineering and Mathematics through Scholarships

We are promoting the achievement of baccalaureate degrees in computer science, computer technology, engineering, engineering technology, and mathematics by academically talented but financially disadvantaged students by: 1) Providing financial aid to low income, academically talented students through 40 scholarships annually over a two- year period 2) Improving education in these disciplines by creating supportive environments for these students through changes in organizational culture and practices 3) Increasing retention of students to degree achievement by encouraging preparation for information technology careers through student development initiatives 4) Improving professional development and employment of students by providing enriched research experiences, mentoring, and support in employment placement 5) Strengthening university- industry partnerships through collaborative implementation.